Mathematical Sciences: Pullbacks and Integral Representations

This project is concerned with integral representation theory. The principal investigator will focus on the application of pullbacks to orders. He will examine group rings for finite groups with cyclic p-Sylow subgroups over the p-adic completion of the integers. He will also study arbitrary finitely generated modules over certain types of orders. A ring is an algebraic object having an addition and multiplication defined on it. The most familiar example is the ring of integers. These objects occur in many different settings in mathematics and theoretical physics. This particular project is concerned with group rings and is of interest both in ring theory and in group theory.